Partial Support of the Forum on Global Change and Our Common Future

The National Academy of Sciences' (NAS) National Research Council (NRC) will co-sponsor a major public "Forum on Global Change and Our Common Future", together with the Smithsonian Institution, the American Association for the Advancement of Science (AAAS), and Sigma Xi, the Scientific Research Society. The Forum is intended to communicate to the public a scientifically balanced view of the changes which appear to be occurring in the global environment, what these changes might mean for society, and what kinds of policies may be appropriate to mitigate and/or to adapt to these changes. A group of sixteen nationally recognized high school teachers will be selected to participate in the Forum. The results will also be published following the Forum.